Network Interface Support for High-Performance and Scalable Communication Services in Clusters

Cluster computing systems are becoming increasingly popular for
providing cost-effective and affordable computing environments for a
range of applications (such as databases, data mining, visualization,
collaborative computing, and high performance computing). These
applications require four fundamental communication services from the
underlying communication subsystem: point-to-point communication,
collective communication, synchronization, and Quality of Service
(QoS). Modern Network Interface Cards (NICs) for clusters incorporate
one or more programmable processors, DMA channels, and large amount of
memory. The NICs are becoming faster, smarter, and intelligent and are
being designated as Active Network Interfaces. Research is proposed
along the following directions to take advantage of such active
network interfaces for implementing and delivering scalable
communication services for next generation clusters: 1) Using
multi-CPU NICs and their architectural features to provide fast
point-to-point communication, 2) Designing NIC-level support for
high-performance and scalable collective communication and
synchronization, 3) Taking advantage of programmable NIC-level
features to provide QoS support, and 4) Experimentally evaluating the
benefits of the new/enhanced communication services for a wide range
of applications using message passing programming model. Through
extensive theoretical, experimental, and simulation studies, NIC-based
solutions are planned to be designed, developed, implemented, and
evaluated for clusters with Myrinet and Gigabit Ethernet
interconnects.